STTR Phase I: A new class of highly conductive solid polymer separator membranes compatible with high voltage cathodes

The broader impact of this Small Business Technology Transfer (STTR) Phase I project will be transformational to multiple markets that require energy storage. High-energy densities will be enabled by the proposed advanced polymer separators. Potential customers for the new battery separator include battery manufacturers for a variety of applications including, but not limited to, space and military, small wearable devices, Radio Frequency Identification (RFID), drones, consumer electronics, as well as automotive manufacturers in the mass mobility market. Adoption will be driven by the huge demand for electric vehicle batteries that are cheaper, lighter, safer and allow for longer drive ranges and reduced charge time. There are multiple ways in which consumers and society will benefit from the batteries enabled by this novel solid-state separator; from electric cars, to flying taxis; from more efficient energy storage grids to more reliable space vehicles; from lighter wearable devices to long lasting medical implants. In the long-term, the successful development of low-cost, fast-charging, high-density, long-life, and safe batteries enabled by the company’s new separator will reduce fossil fuel dependency and drive the electrification of the transportation sector and the transition towards greener energy solutions.

This Small Business Technology Transfer (STTR) Phase I project will develop an advanced polymer separator for novel hybrid solid/liquid battery cells which will dramatically improve performance of state-of-the-art solid-state batteries, enabling higher energy density, faster charging rate and enhanced safety over commercial Lithium-ion batteries. The new separator will be constructed from a novel polymer material whose feasibility has been validated at laboratory level. Stability tests showed higher conductivity and stability than currently available options. Compatibility with high-voltage cathodes was also demonstrated in preliminary studies. The goals of the project are (1) to develop a solid electrolyte which has an ionic conductivity comparable to that of liquid electrolytes that are currently used in the Li-ion batteries and (2) a scalable solid separator (using the above electrolyte) that is compatible with high-voltage cathodes (4 – 6 V). Main technical hurdles to overcome for successful commercialization are developing blade-cast-worthy slurries and scaling up the separator to a cell-size free-standing sheet. The former will be achieved by tuning the composition of the slurry to improve solubility; the latter will be achieved by improving the molecular weight of the polymer and blending and mixing it with ceramic oxide.